SBIR Phase II: High-Throughput Agile Robotic Manufacturing System for Tile Mosaics

This Small Business Innovation Research (SBIR) Phase II project will demonstrate a prototype of a
high-throughput, agile, low-cost manufacturing system for tile mosaics. Mosaics have been a source of
visual splendor for millennia, but they have always required arduous and painstaking hand assembly.
Our Phase I proved the feasibility of a programmable, high-throughput robotic tile-assembly system to
enhance the production of mosaic tilings. Phase II R&D will build upon Phase I success to further speed
up, automate and scale the system, develop an effective agile manufacturing management system, and
analyze the economic viability of robotic mosaic assembly for Phase III. We will accomplish this by
enhancing the mechanical processes and reducing operator time - in addition to developing a productionflow
information system. After Phase II system optimization, we will evaluate the commercial potential
of the Artaic technology. The anticipated technical result will be providing a 5x faster manufacturing
process with a 75% reduction in the price per square foot of customizable mosaic tilings produced. The
intellectual merits of this SBIR project involve Artaic’s disruptive robotic technology, which transforms
mosaic installation from its current, time-consuming manual labor processes to a rapid, robotically
directed customizable process.

The broader impact/commercial potential of this project expands the utilization of artisanal mosaic work
while increasing the competitive advantage of U.S. manufacturing processes through increased
automation and customization. Successful development of this technology will enable a breakthrough
pricing structure that is 75% lower than the competition (based on manual and rudimentary automated
processes), leading to broad market affordability and widespread commercial adoption. Our robotic
system has the potential to revolutionize the $76B global tile industry, while creating numerous
domestic job opportunities. Artaic expects that the 5x increase in manufacturing speed realized during
Phase I will be maintained in Phase II during manufacturing scale-up without loss of placement
accuracy. The increased understanding of robotic agile manufacturing-enabled mass customization
processes will expand the scientific understanding of related robotic processes that utilize highthroughput
flexible assemblies, such as for medical or pharmaceutical technologies, or for consumer
products. In addition, classical mosaic techniques will become more accessible as an art form to all
students, while undergraduate students will increase their understanding of STEM concepts through
engineering courses utilizing this technology. Artists and designers will find the realization of their
design work much more practical and affordable as a business enterprise.